RUI: Acquisition of a Secondary Ion Mass Spectrometer

Acquisition of the secondary ion mass spectrometer will allow faculty and students to accomplish a more sophisticated and detailed study of advanced devices and processing techniques and also enable the school to establish a higher level of engineering research effort in semiconductor devices and thin film structure. The research effort should help to generate improvements in productivity and the foreign competitive position for a variety of firms involved in semiconductor technology. The equipment will allow the school to provide undergraduates the critical skills required in solid state device technology along with preparing them for further work at the graduate level.